REU; Parallel Processing: Development and Implementation ofParallel Algorithms

This REU site project is designed to illustrate methods and phases of research from problem definition and literature search, through the actual research, to the point of writing up results and conclusions. The particular research topic for this project is parallel processing. Students will be involved in the development and implementation of efficient parallel algorithms, which use supporting data structures, to solve integer linear programming and/or composite graph coloring problems. This research will necessarily involve the investigation of current algorithms for solving integer linear programming and/or composite graph coloring problems, as well as the data structures used by those algorithms.